The Context for Developing Leadership for Mathematics and Science Education

This project proposes to conduct a study that investigates various aspects of leadership development in mathematics and science education while addressing four questions:

1. What are the characteristics of current leaders in science and mathematics education in crucial arenas of educational activity?
2. What educational and professional experiences led them to their leadership positions?
3. What do these leaders see as the desired future directions for mathematics and science education?
4. From where will the next generation of leaders come?

In order to address these questions, the project will: 1) interview a systematic sample of mathematics and science education leaders in crucial areas; 2) review their curriculum vitae and products of their professional work; 3) analyze existing national databases that provide information about this leadership community; 4) review literature that expands understanding of leadership in the context of education; and 5) study program documents from leading programs of preparation of mathematics and science education leaders.